Mechanism of Action of Lipoxygenase

Lipoxygenases are non-heme, non-sulfur iron dioxygenases which catalzye the hydroperoxidation of unsaturated fatty acids containing cis, cis-1, 4-pentadiene systems. The object of these studies is an understanding of the structure-function relationship of lipoxygenase. Sequences of 14 different plant and animal lipoxygenases share a common motif of histidine residues which are candidates for a putative iron coordination site. The iron binding ability of the mutant constructions of the well-characterized isozyme (soybean L-1) in which the histidines are replaced with glutamine will be tested. These mutants have been previously constructed and have been shown to have zero or diminished activities. Three soybean seed lipoxygenases, L-1, L-2 and L-3, despite their great homology, differ markedly in their enzymic characteristics e.g. substrate specificity, region-specificity, pH optimum and secondary reactions. Chimeric constructs of these enzymes will be examined to identify the basis for their differences. The information sought should contribute to an understanding of the nature of the active site and the diversity of kinetic characteristics of the primary and secondary reactions of the isozymes and will ultimately facilitate interpretation of the X-ray structure of lipoxygenase which is likely to become available in the future. %%% The results will not only contribute to a basic understanding of the mechanism of lipoxygenase but they will also be significant for human health since lipoxygenases generate precursors of leukotrienes and other important physiological efforts in human tissue. It is likely that much of what is learn from these studies on the readily available soybean enzyme will be useful in the understanding of the animal enzymes.